Low-Dimensional Topology Viewed through the Lens of Floer Homology

Understanding shapes called “smooth manifolds” is of fundamental importance in the mathematical fields of geometry and topology. Such shapes have a dimension, and the classification of 3- and 4-dimensional smooth manifolds is intimately related to theoretical physics through the framework of gauge theory. Surprising results from the late 20th century indicate that 4-manifolds are qualitatively much different, and more difficult to study than manifolds of higher and lower dimensions. One fruitful approach to their study is to cut them into simpler pieces along 3-dimensional manifolds, so that tools and techniques available from the comparatively simpler realm of 3-manifolds can be brought to bear on the fourth dimension. This research project aims to deepen understanding of both 3- and 4-dimensional manifolds, employing tools called "Floer homologies," which arise from gauge theory. For instance, it will explore algebraic structures called homology cobordism groups, which allow 3-manifolds to be added and subtracted by considering certain 4-manifolds that interpolate between them like frames of a movie. The project will address several fundamental questions about these structures and refine them to account for symmetries of the spaces involved. In another direction, the project will exploit geometric structures on smooth 4-manifolds to answer difficult questions about 3-manifolds; for example, it will obstruct the existence of what are known as "Anosov Flows" on certain 3-manifolds. One can picture one of these flows like a special wind pattern: if you release tiny dust particles, some lines of motion bring the particles rapidly together, while others push them quickly apart. The project will make substantial new progress on a subtle and central question asking which 3-dimensional manifolds can support this kind of “wind”. The project will involve graduate students in many aspects of the research.

This project studies topological and geometric objects in low dimensions using tools coming from Floer homology. Specific goals include the development of Floer-theoretic invariants of smooth equivariant homology cobordism groups, application of these invariants to long-standing questions on knot concordance, determining the structure of geometric maps between concordance groups, and the development of new Floer-theoretic obstructions to a 3-manifold possessing taut foliations or Anosov Flows. The project will also create resources for students and researchers seeking to learn the tools employed in pursuit of these goals. The project draws on methods from homological algebra, gauge theory, knot theory, contact geometry, and the theory of pseudo-holomorphic curves in symplectic manifolds.